Workshop on Digital Government: An Urban Research Agenda

EIA-0089869
Buy, Ugo
University of Illinois Chicago

Workshop on Digital Government: An Urban Research Agenda

This grant will support a workshop to define the information and computer science research agenda related to urban government issues. It will involve a consortium of 17 urban universities (listed on page 4 of the proposal) called the Great Cities Universities, of which the University of Illinois Chicago is one.

Information and networking technologies now have the potential to affect a variety of domains of interest in an urban environment including land use, criminal justice, digital governance and democracy, GIS-supported issues such as housing and business locations, social welfare services, education, and many more. This is a rich area of applications which should be of great interest to the computer and information science community.

This will be a joint effort of UIC's Department of Electrical Engineering and Computer Science and UIC's College of Urban Planning and Public Affairs; both disciplines will be essential to the an effective workshop.
.